U.S.-Taiwan Research Development Visit with EASI: High-Precision Design and Manufacturing

0313977
Liang

The project is about a planning visit for developing collaborative research work in developing collaborative research work in high-precision design and manufacturing with researchers at National Taiwan University in Taiwan. The proposed study would contribute to the advanced precision manufacturing, strengthening the research collaboration between U.S. and Taiwan in the subject area.